New Science Centers Support Program

In 1988 and 1989, ASTC offered a seven-day institute for founders of new science centers, funded by the National Science Foundation. The impact of these institutes was profound, making the difference between success and failure for several, and helping many others clarify and strengthen their plans. Since then demand for technical assistance to new science centers has increased rather than decreased. Building on its experience, ASTC proposes a 3-1/2 year multiple-strategy program to provide knowledgeable, supportive guidance to the founders of new science centers. The elements are: (1) a 4-day workshop on how to start a science center; (2) a resource book on starting and operating science centers; (3) a network for new science centers which meets at the ASTC annual conference for mutual support and information sharing; (4) one-day workshops held in Conjunction with the ASTC conference and planned by the steering committee of the New Science Center Network; (5) increased coverage in the ASTC Newsletter; (6) an annual progress report on new science centers; and (7) on-going, individualized technical assistance.